HBCU-UP Planning Grant

A majority of entering students begin their college careers with inadequate
mathematics background to pursue SMET careers. The purpose of the proposed
planning program is to design a comprehensive program to overcome these
entering deficiencies to improve the participation and performance of minority
students in SMET disciplines. The overall goals of the planning program will be
(a) to assess the strengths, weaknesses and needs of mathematics instruction as
well as other gate-keeping courses in the SMET disciplines; and (b) to assess
undergraduate student research needs and opportunities in SMET disciplines on
and off campus.

Assessment includes, student performances on many items such as the Sophomore
Proficiency Examination, Major Area Examinations, Graduate and Professional
School Entrance Examinations, success in advanced programs, presentations of
research papers at professional conferences, professional publications, and the
type of employment and advancement in ranks.

Assessment of the quality of faculty members in the SMET disciplines will be done
by a review of the credentials of faculty members as compared to the SMET faculty
in other institutions and the standards set by accrediting bodies and performance
portfolios. In assessing faculty development and recruitment needs, the ratio of
instructor/students in mathematics and other SMET disciplines will be compared
with other majors at Benedict, as well as with other similar institutions.

Visitation to other institutions with SMET's curricula that have recently been
reformed due to NSF effort, self-study or otherwise, will help Benedict to have
a better assessment of the College's current SMET's curricula. This is also the case
when selected staff members of the Task Force visit sites that they have recently
reformed their SMET's curricula.

The current and future technology needs for SMET courses, in general, and SMET
majors, in particular, will be assessed.

Consultants with expertise in SMET curricula will be used in the overall process of
assessing the current curricula and potentially improving and/or redesigning them.
It will be made certain that high-level decision-making administrators (President,
his cabinet, and deans) review the comprehensive proposal and approve its contents
before submission to NSF .

An internal advisory committee, (Task Force), will help to guide the work and to
assess the planing program. In particular, this committee will help assess and analyze
data and plan/design the curriculum for the comprehensive program.

It is anticipated that the proposed project will result in the development of a
competitive proposal for submission to the National Science Foundation for funding
through the HBCU-UP Program. The proposal will be based on an accurate assessment of
current and future needs in the SMET programs at Benedict College. Results of these
assessment activities will also provide information needed by the College to improve
other areas that bear on the performance of students in the SMET disciplines.